Acquisition of a Peptide Sequencer

This proposal requests funds to purchase a peptide sequencer for the Molecular and Cellular Biology Program at Ohio University. Faculty amd students will use the instrument for research involving recombinant DNA and/or structure and function of biologically active molecules. The investigators are well qualified to conduct the proposed research utilizing the requested instrument. Support is recommended.